Mathematical Investigation of Neural Processing in the Auditory Brainstem

Reed
9805761
The investigator and his collaborator, Joseph Blum, have
offered the only proposal for how the neurons in the lateral
superior olive collectively compute and encode azimuthal location
based on sound level difference at the ears. Recent experimental
evidence indicates that their proposal may be correct. In the
first part of this project, the investigator works with
collaborators to compare the model predictions with experimental
results. Analytical investigations explain why the model encoding
is very independent of sound level and exceptionally robust to
parameter variations and synapse and cell death. A second part
of the project uses mathematical models and machine computation
to investigate neural processing in the dorsal nucleus of the
lateral lemniscus, DNLL, an important intermediary processing
region between the superior olivary complex and the midbrain.
Recent experimental studies have shed new light on the anatomy
and physiology of the DNLL, but no modelling studies have been
performed to understand how the DNLL neurons process their inputs
and influence the encoding of a map of space in the auditory
midbrain.
Using mathematics and computation, the investigator studies
the structure and function of specific groups of nerve cells. The
main focus of this project is to understand how groups of nerve
cells in the brain perform together calculations that individual
nerve cells cannot do. These investigations not only help us
understand normal brain function, but should also enable the
design of prosthetic devices and treatment strategies in certain
cases of brain injury. In connection with these research
activities, the investigator trains mathematics Ph.D. students
and post-doctoral associates in the applications of mathematics
to biological systems and medicine. In addition, he teaches a
freshman course entitled "Applications of Mathematics to
Physiology and Medicine," which introduces excellent college
freshmen to this new and exciting field.